REU SITES PANEL: Undergraduate Research Experience in Computer Science

REU site: BACHE-REU Scholarship Program in Computer Science

The program, BACHE-REU Scholarship in Computer Science, is designed to
provide undergraduate research opportunities to full-time students attending any of the
five member institutions in the Birmingham Area Consortium of Higher Education.
The five institutions are Birmingham-Southern College, Miles College, Samford
University, the University of Montevallo, and the University of Alabama in Birmingham.

Intellectual Merit
The BACHE REU-CS program is a year-long experience in which
participants are selected from BACHE institutions to take part in projects designed by
faculty researchers from within the BACHE consortium. Each participating institution
will have an assigned faculty coordinator who will publicize the project on his/her
campus. Fourteen students will be selected by acommittee of faculty mentors based on
compatible interest and skills outlined in available projects. Accepted Scholars will
spend up to 10 hours per week for theacademic year and full time during the summer
learning a wide variety of disciplines and approaches. The students will participate in
weekly journal club meetings and monthly research-in-progress meetings. In addition,
the students will present their work in an inter-institutional symposium.

Broader Impact
The primary goal of this program is to give BACHE REU - CS
scholars the experience and confidence to pursue graduate study in computer science.
Several factors shape the design of this program. 1) While all BACHE institutions offer
undergraduate computer science and/or management information system majors, only
the University of Alabama in Birmingham offers graduate study in Computer Science.
This program will increase the research opportunities for students attending
Birmingham-Southern College, Miles, Samford, and the University of Montevallo. 2)
BACHE institutions represent a wide range of student profiles: Samford and
Birmingham-Southern College students are generally upper middle class or affluent,
UAB has a large first-generation college student and international representation, Miles
is an historically black institution, and Montevallo is a state-supported liberal arts
institution. Interaction between faculty and students from such disparate institutions will
be of great benefit to all concerned, and will respond to the NSF's stated goal of
increasing research participation by underrepresented constituencies.